Experimental Mathematics Program

Students are participating in a newly developed Nonlinear Lattice Dynamic course, one of a set of experimental mathematics courses being developed at Northwestern and one which cannot be taught without significant computer facilities. Displaying features of systems of equations on the screen in the classroom laboratory makes it possible to discuss and analyze how the whole family of solutions depend on their initial conditions and to compare and contrast how the nonlinear solutions are approximated by their linear counterparts.